Enchancement and Upgrade of the DNA Sequencing Facility: Upgrade of Automated Sequencer (ABI 37 3A)/Electrophoresis Unit

We are proposing to purchase a number of items of equipment and software that will enhance the capabilities and services of our DNA Sequencing Core Facility by upgrading our Applied Biosystems 373A Electrophoresis Unit (= automated sequencer) and its associated equipment and providing the users with enhanced access to data-analysis work stations. The hardware includes a five-filter wheel (to permit sequencing with T7 DNA polymerase), a liner upgrade (to permit the option of using several variable well-to-read gel plates), vertical agarose gel plates (to facilitate analysis of 2-3 kb-fragments and random amplified polymorphic DNA), and computer equipment (to increase analytical speed and accommodate multiple users). The software includes material to facilitate sequence alignment, increase the speed of scoring fragments, and create consensus sequences. The enhancements will serve a diversity of research projects in different disciplines, from phylogenetic reconstructions (cyanobacteria from extreme environments, the major crustacean lineages) to examinations of gene expression (flagellar regeneration in Chlamydomonas, acclimatory change in muscle tissue) to the determination of reproductive patterns in natural populations (mating in livebearing fishes). The upgrade will expand the range of applications that the facility can offer and permit more rapid sample analysis, thereby enabling users from several disciplines to expand readily the scope of their work and to increase their productivity.